The Georgia Tech Summer Undergraduate Program of Research in Electrical Engineering for Minorities

The GT-SUPREEM program at Georgia Institute of Technology is serving as a Research Experiences for Undergraduates site. GT- SUPREEM is an eight-week summer research program designed to attract qualified minority students into the field of electrical engineering. Ten students of a least junior-level undergraduate standing will be recruited annually on a nationwide basis and paired with both a faculty and a graduate student mentor to undertake research projects in the Georgia Tech School of Electrical Engineering. The students will be housed on campus, and in addition to lodging and a travel allowance, will be provided with a $3,000 stipend. At the conclusion of the summer, the students will be expected to prepare both oral and written summaries of their research projects. It is anticipated that this experience will encourage these students to become applicants for graduate school in ensuing years.